Bubble-Free Fluidization of Granular Materials Subject to Combined Gas Flow and Vibration

Granular materials, like sand, can flow like liquids. This behavior is visible in hourglasses, emptying grain silos, avalanches, and the wavy ripples on beaches and dunes. These flows occur when forces like gravity, seismic vibrations, or wind and water drag act upon individual grains. Although these flows are often seen in nature, predicting and controlling how granular particles flow, mix, and segregate is vital for many engineering applications. This includes applications like catalytic reactors, mining separation, and agricultural feedstock distribution. This project will investigate the fluid-like state induced in granular materials through combined gas flow and vibration. It will progress from a fundamental characterization of how this behavior compares to conventional fluids to the development of methods for manipulating particle flow. Ultimately, the project will enable the optimization of industrial processes involving granular flows, potentially leading to the development of new technologies across industries critical to economic growth and national security. This award will provide students training in experimental design, computational modeling, data analysis, and scientific inquiry. The project will also feature in-person demonstrations of fluid-like granular flows designed to engage middle school students, alongside summer research internships for high schoolers to inspire the next generation of scientists and engineers.

This project will study grains fluidized by combined gas flow and vibration using experiments and simulations, characterizing (A) diffusivity and rheology, (B) mixing and segregation of particles and (C) novel excitation mechanisms and resulting transport. These studies will (i) characterize the physics of these systems for mechanistic model comparison with other complex fluids and (ii) identify areas for utilizing these characteristics to develop and optimize technologies involving granular flows, particularly in aluminum-water reactors and mining separations. The rheological characterization and its subsequent use to build and test continuum models for granular flow will shed light on the key physical and mathematical features needed to capture fluid-solid transitions in granular motion. Further, the project will investigate how various flow conditions, such as chute flow, binary particle flow, intruder flow, dual-mode vibration and active granular flow affect the diffusivity, mixing, segregation and translation of these particles. Overall, this work will provide mechanistic insights into the balance of forces and dimensionless parameters driving dynamics in these systems, ultimately providing design rules for manipulating particle motion in various technological devices and processes.